Self-Similarity, Tiling, and Wavelets

ABSTRACT

This proposal concerns several interrelated areas of mathematics:
self-affine tiles and reptiles, refinable functions and wavelets, spectral
sets, and mathematical quasicrystals. Although the subjects may appear to be
rather distant from each other, the proposal actually has a very coherent
central theme, which is self-similarity and tiling, and using analytical
techniques to study them. The theme occurs naturally in self-affine tiles and reptiles, and in the branch of quasicrystal questions the PI proposes here. It occurs, although
less obviously, in refinable functions and in spectral sets.
The refinement equation satisfied by a refinable function is a generalized self-similarity,
and it is closely related to self-affine tiles and self-similar measures.
Spectral sets, on the other hand, are closely tied with tiling, as it is
conjectured that a set is a spectral set if and only if it tiles by
translation.

A self-similar tile is one that can be disected into several pieces
such that all pieces are identical in shape and are similar to the original
tile. The simplest example of such a tile is the square, which can be
disected into 4 identical squares half in dimension of the original square.
By repeated inflation and disecting of a self-similar tile we can cover
a larger and larger area, and this results a self-similar tiling. Self-similar
tilings are fascinating, and many of the aperiodic tiles discovered
in recent years, such as the Penrose aperiodic tiles, can be viewed
as generalized self-similar tiles. Furthermore, self-similar tilings
have been linked to quasicrystals, materials whose atomic structures
are aperiodic rather than the usual periodic structures. It is not
clear how these types of atomic structure are formed, but models have
been conceived by physicists using aperiodic tiles.